Topics in Risk Sensitive Control and Financial Mathematics

This research will contribute to the development of new methodologies
and models in the areas of mathematical control theory, stochastic
analysis, and financial mathematics for the purpose of solving complex
problems in financial decision making and financial engineering. It is
expected that this research will have the greatest impact on application
of mathematics in the areas of optimal portfolio management and asset
allocation, as well as in the area managing of credit risk. A fundamental
aspect of the research is the concept of risk sensitive stochastic control
theory for investment problems with an infinite planning horizon. This
kind of optimization objective is appealing because stationary trading
strategies are likely to be optimal and thus there is good potential for
being able to compute optimal solutions for meaningful, practical
problems. In addition, several classes of finite planning horizon
problems can be reasonably well approximated by problems with an infinite
planning horizon. A second fundamental aspect of the proposed research is
the explicit consideration given to statistical estimation issues. Optimal
control methodologies are rarely used in the financial industry, largely
because of statistical difficulties associated with the estimation of
constant drift coefficients in diffusion process models of individual
securities. This research will serve to reduce the gap between theory and
practice by developing optimization models that incorporate exogenous
factors. By explicitly modeling the dependence of the assets on factors,
it will be possible to obtain more realistic models, to better understand
the statistical estimation difficulties, and to be in a position to apply
adaptive control methods. In addition, the proposed research will advance
our understanding of quantitative aspects of default credit risk,
which is a vital element in financial decision making.

Managing large sums of dollars of notional capital is as complex as
managing global communication networks or as managing global
manufacturing enterprises. Thus common sense, intuition and experience
alone will typically not suffice to safely and efficiently manage
available financial instruments. This research is aimed at providing
formal mathematical support for financial management. Although the
research will require fundamental advances within the areas of
mathematical control theory, stochastic analysis, and financial
mathematics, it is anticipated that this research will lead to new and
practical tools that eventually become widely used in the financial
industry in order to enhance its competitiveness and efficiency. This is
particularly important given the impact the U.S. financial industry has on
the global economy. The big emphasis will be placed in this research on
the development of computer algorithms for solving large-scale problems so
that the effective use can be made of high-performance computing.

----------------------